Dissertation Research: Limits and Possibilities for Lawyers in Bejing, China

This study focuses on an emergent occupational group, lawyers in China, at a key moment in their professional development. The existing research literature documenting the way that occupational groups become bona fide professions provides the starting point for this project. In China, it is hypothesized, foreign investment and international trade are giving lawyers unique access to, and jurisdiction over, important new territory. China thus provides an ideal laboratory for testing theories about legal professionalization and globalization. The research involves the collection of multi-level data on lawyers and their firms through a mail survey of 1,000 randomly-selected lawyers in Beijing. Data will include the background characteristics of lawyers, the structure and organization of legal practice, income and legal receipts, the distribution of time and client billings across fields of legal practice, corporate and personal clients, patterns of client refusals, case settlement methods, and attitudes and opinions. This material will be made available for public use.